Kinetic Studies of Simple and Complex Redox Centers Attached to Self-Assembled Monolayers on Electrodes

Harry O. Finklea of the Department of Chemistry at West Virginia University is supported by the Analytical and Surface Chemistry Program and the Office of Multidisciplinary Activities to carry out fundamental studies of the nature of electron transfer reactions at electrode surfaces. By using self-assembled monolayers (SAMs) on gold and other electrodes, large overpotentials can be reached that are usually inaccessible without being obscured by other processes taking place at the electrode surface such as mass transport or double layer charging. Redox moieties will be tethered to the SAM and kinetic studies will include coupled proton and electron transfer, a comparison of electron transfer rates through the tethering chain and through the neighboring diluent chains, and characterization of the rates of various binuclear systems with different attachment modes. Redox centers based on Co(II/III) will be used to probe the validity of the Marcus density-of-states model for electron transfer kinetics for the case of one-electron exchange centers with large and unequal reorganization energies for the two oxidation states. SAMs will be made with alkanethiolates. The objective of this work is to extend our knowledge of the mechanisms of electron transfer reactions. Such reactions are at the heart of batteries and many biological processes. The particular avenue chosen to accomplish this is via surface reactions at metallic electrodes covered with a self assembled organic monolayer. Such an arrangement makes it possible to make the measurements required in a manner relatively free from other electrode surface processes that often interfere.